POWRE: Learning and Application of Methods to the Prediction of In Situ Marine Primary Production Under the Influence of Changing Solar Ultraviolet Radiation

#00-74422
Prezelin
This award provides funding that will enable the PI to learn modern methods of computational analyses and modeling that will significantly broaden the scope of her research. Currently, she is investigating the effects of changing Ultra Violet Radiation (UVR) on marine primary productivity. However she would like to expand this research into predictive/theoretical modeling of the consequences of UVR changes on phytoplankton photoecology and related ecosystem dynamics. Ultimately, she would like to develop a primary production model that considers the influence of UVR at the ecosystem level and that is mechanistically based upon the complex regulatory biology that controls the UVR photoecology of marine plants. This award is relevant to the POWRE program because the PI, who has just spent four years in an administrative position, will be able to expand her science career and continue to advance the visibility of women in science.